Third International Conference on Informetrics, Bangalore, India, August 9-12, 1991, Group Travel Award in U.S. and Indian Currencies.

Description: This project supports the travel of a U.S. delegation of five scientists to the Third International Conference on Informetrics to be held in Bangalore, India, between August 9-12, 1991. Conference topics include: Informetrics, foundation, empirical laws, and general theory; Bibliometrics, classic laws, models, distributions and their applications, and epidemic models; Citation analysis; Obsolescence of literature; Growth of libraries, systems, and data bases; Information use, models, circulation theory, in-library use, use of journals, and of databases; Scientometrics, quantitative aspects of science, quantitative and graphic studies of science policy, science administration, and scientific productivity; Statistical methods as applicable to informetrics, rank theory, non-Gaussian distribution, stochastic models, bootstrap approach to inference, and multivariate studies; Software, development of special purpose software. Scope: This is the third in a series of conferences in this field. The earlier two were held in Diepenbeek, Belgium, and London, Ontario, Canada. Past participation has been from 23 countries from North America, Europe, Asia and Africa. The program committee for the 1991 conference includes four U.S. scientists in addition to others from India, China, the UK, Canada, Hungary, Belgium, and Bulgaria. Dr. I.K. Ravichandra Rao of the Indian Statistical Institute in Bangalore is the organizing secretary. The topic is of special interest to U.S. and Indian scientists, both in the academic institutions and in governmental organizations.